Microcomputer Laboratory for Undergraduate Cognitive Psychology Research

Currently, the lack of modern equipment for computerized stimulus presentation, response measurement and data analysis seriously hampers the training of students in the sophisticated research methods needed to investigate cognitive processes. This project will establish a network of seven Macintosh microcomputers to improve instruction in research methods and cognitive psychology for undergraduate psychology majors. Lower-division research methods classes, two upper-division laboratory courses, an intermediate statistics course, and individual student research projects will employ the new equipment. It is essential that students have adequate training in this area because of the important role cognitive psychology plays within the larger field of psychology and in the rapidly advancing interdisciplinary field known as cognitive science.